Multiple-Item Auctions

In recent years, auction theory has been asked to provide guidance to
policymakers in several important areas, including spectrum auctions,
electricity auctions, and Treasury auctions. Unfortunately, the received
theory had largely focused on auctions of a single object, and so had little
to rigorously say about the most empirically relevant auction problems.
Recent research by economists has begun to expand the boundaries of auction
theory and analysis so as to encompass multiple-item auctions. In prior
work, we have analyzed the theoretical properties of existing multiple-item
auction formats, proposed new efficient auction formats for multiple items,
proposed new applications for multiple-item auctions, and empirically
evaluated recent applications of auctions for spectrum and electricity. This
project builds upon this recent work, by examining the following topics:
* Development of the properties of a new, efficient ascending auction for
heterogeneous commodities.
* Understanding the theoretical underpinnings for efficient ascending
auctions.
* Analysis of auctions for heterogeneous commodities in environments with
interdependent values.
* Study of auction theory with agency problems.
* Use of the reserve price in mitigating the exercise of market power.
* New applications for multiple-item auction designs.
* Empirical analysis of the European 3G spectrum auctions.
The project includes a balance between further theoretical developments of
multiple-item auctions, and practical applications and empirical testing of
the ideas of auction theory.